ABELIAN VARIETIES, MODULI OF VECTOR BUNDLES AND MODULI OF COURVES

In work with G. Pareschi, Popa has introduced a notion of Mukai regularity
for coherent sheaves on abelian varieties, defined using the Fourier-Mukai
transform, and developed its theory. Popa and Pareschi are now interested
in using the concept of Mukai regularity in the study of irregular
varieties, especially to give effective results on adjoint linear series and
pluiricanonical maps. Also, Popa and Pareschi intend to use invariants
arising naturally from this theory in order to differentiate between
Jacobians and other abelian varieties, and thus approach the Schottky
problem in a new way. Using some of their results that carry through in the
more general context of an arbitrary Fourier transform, Popa and Pareschi
intend to obtain constraints on the existence of equivalences of derived
categories, which is a main concern in this line of approach to mirror
symmetry. In other work, Popa has established effective results for linear
series on moduli spaces of vector bundles on curves. Popa is interested in
approaching the Strange Duality by refining his methods based on the
Fourier-Mukai transform of Verlinde bundles on Jacobians and combining it
with representation theory techniques. Popa also intends to approach some
optimal conjectures on effective base point freeness on these moduli spaces
for general curves, using degeneration to stable curves. In work with G.
Farkas, Popa has obtained Brill-Noether type non-existence results for rank
2 vector bundles on general curves, via generalized limit linear series and
stability of pairs on reducible curves. Popa and Farkas intend to further
refine these techniques in order to prove a conjecture of
Bertram-Feinberger-Mukai on Brill-Noether theory for rank 2 vector bundles
with canonical determinant, and to find non-existence results in higher
ranks. This will allow them to define new divisors in moduli spaces of
stable curves for appropriate genera. The ultimate goal of this project is
to compute the class of these divisors and determine whether they provide
counterexamples to the Harris-Morrison Slope Conjecture as expected.

Algebraic curves and abelian varieties are ubiquitous objects in
mathematics. Apart from their realizations in algebraic geometry, they
appear in complex analysis (as Riemann surfaces or complex tori) or algebra
(as field extensions or group schemes), and play a fundamental role in
recent progress in mathematical physics. One of the most important problems
in algebraic geometry is to classify algebraic varieties. For
one-dimensional varieties (that is, for algebraic curves) this problem is
approached by understanding the geometry of a space M(g) parametrizing all
curves of given genus. In the case of abelian varieties, one way to approach
this is to understand the totality of a specific kind of algebraic objects
(called coherent sheaves) which can be associated to them. The investigator
is pursuing these directions in research related to this proposal.